A Microcomputer Curriculum for the Handicapped

The computer provides handicapped people in this modern society a tool which can greatly enhance their chances of independent living in many ways. It permits them to live more normal lives. This program proposes to utilize special education majors by teaming them with handicapped students. The special education majors involved will receive instruction related to the specific hardware and software required by their teammates. They, in turn, will have the responsibility of teaching these computer related skills to their partners. This program will provide all students involved with the basis for further studies in the area of computing; the special education students will be provided with important exposure to tools of their trade not normally received in an undergraduate program and the handicapped with knowledge that will make them more marketable. Matching funds are available.